Mathematical Sciences: Monotone Dynamical Systems

This project is for the study of differential equations which generate monotone dynamical systems. Included are ordinary, delay and parabolic systems of differential equations. The goal is to describe global qualitative features of such flows. The systems under consideration arise naturally as models of chemical and biological processes.